Oceanographic Instrumentation

9820055
Coale
This award to San Jose State University Foundation will provide instrumentation for oceanographic research for use on R/V Point Sur, a research vessel operated by the Moss Landing Marine Laboratory as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a retrofit for the acoustic Doppler current meter, two transmissometers, a color printer, a debubbler, a continuous flow cuvette, a laser printer and a remote data display. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly along the California margin, in 1999 and future years.
***